TF-SING: Collaborative Research: Reliable Spatial-Temporal Coverage with Minimum Cost in Wireless Sensor Network Deployments

This research studies new methods for constructing
economical plans to deploy wireless sensor nodes of
multiple types and form a reliable wireless sensor
network to monitor, throughout a given time period,
a large set of targets spread across a geographical
space. It initiates and carries out a thorough
analytical investigation on deploying multiple types
of sensors for constructing a wireless sensor network
that satisfies, simultaneously, the min-cost, the
lifetime, the fault-tolerance, and the connectivity
requirements. It integrates concepts and methods in
linear programming, convex programming, reliability
theory, graph theory, and approximation algorithms
to model these requirements and find efficient solutions.
Results of this research provide a substantial impact on
large-scale, terrestrial and underwater, wireless sensor
network applications and communication protocol designs.

More specifically, this research seeks analytical models
to provide, with minimum monetary cost on sensor nodes,
reliable sensor placements and time scheduling to hinge
on spatial-temporal information and power consumption.
Despite failures and limited power supply of sensor
nodes, the network must guarantee that each spatial
target be watched by at least one active sensor at any
given moment during a pre-determined period of time
required by the underlying application. This implies
sensor placements must satisfy the spatial-temporal
coverage, the fault-tolerance, and the min-cost
requirements for single-hop networks; as well as the
additional connectivity requirement for multi-hop
networks, which ensures that each sensor node is
connected to a base station through a communication path.